Strengthening Mathematics and Natural Science Curriculum Through Computer-Assisted Instruction

This project strengthens the educational program in mathematics and natural science by using microcomputers as instructional tools. Microcomputers are installed for a math-science laboratory. The project focuses on basic analytical skills development in biology, chemistry, physics and mathematics (algebra). The project provides an improved curriculum, instructional facilities, and delivery system for the Mathematics and Natural Science Division of the college. The grantee provides funds for this project that are an equal match for the NSF award.